Increasing the Representation of Women, Minorities and the Physically Disabled in Science & Engineering: A Survey & Analysis of Efforts at Selected U.S. Colleges & Universities

The increasing national need for science, engineering and technological personnel make the participation of all sectors of the U.S. population in these areas imperative. Women, certain minority groups, and physically disabled persons continue to be underrepresented among those pursuing science and engineering degrees. Colleges and universities have made efforts to increase the participation of these target groups in science and engineering through precollege programs to develop student interest and skills, recruitment programs to bring students into science and engineering majors, and retention programs to improve graduation rates. However, the extent and effectiveness of these programs and services has not been examined, especially at the undergraduate and graduate levels. Through surveys and intensive case studies directed at top research universities, minority institutions, and women's colleges, this project will determine the number, types, and effectiveness of programs and services currently housed at these U.S. institutions which are aimed at increasing the participation of female, minority, and physically disabled students in science and engineering. Findings of the project will be disseminated through a conference on recruitment and retention efforts and through the publication and distribution of a report on the recruitment and retention of female, minority, and physically disabled students in science and engineering. The project will make an important contribution to NSF and national understanding and implementation programs to broaden participation in science and engineering.